US-Hungary Joint Fund Materials Research on Spin Density Waves

This US-Hungary Joint Fund research project on Spin Density Waves in Low Dimensional Solids will be conducted by Dr. Gyorgy Mihaly, Central Research Institute for Solid State Physics, Budapest, and Professor Kazumi Maki, University of Southern California, Los Angeles. This effort will feature the theoretical aspects of collective electrical properties in low dimensional systems. The researchers will explore two basic features of the spin density wave excitation: a) Coulomb effects in the low temperature nonlinear conduction and b) the unusual low-frequency response below the gap energy, including weak relaxation processes. Results leading to separation of thermal effects and the influence of thermally excited screening carriers should contribute to our understanding of spin density wave dynamics. This research in solid state physics fulfills the US-Hungary Joint Fund's program objective of advancing science by enabling leading experts in the U.S. and Hungary to combine complementary talents and pool research resources in areas of strong mutual interest and competence. Funds for the project are provided through the US-Hungary Joint Fund, Budapest, in accordance with established guidelines.